SBIR Phase I: An Interplanetary Smallsat for Fast Connectivity, Navigation, and Positioning

This Small Business Innovation Research (SBIR) Phase I project seeks to deploy a commercial space platform in cislunar and deep space to provide fast connectivity, navigation, and positioning to space users. This cislunar network will include nodes in low-Earth Orbit, Geosynchronous orbit and Lunar orbit to create a secure and covert gigabit network for scientific, commercial, and military applications. This project will develop a revolutionary spacecraft that will be the heart of the new network. This product will be a small yet nimble spacecraft that uses lasers, a novel architecture, and machine learning software to provide high-data-rate omnidirectional coverage of its surroundings. The company plans to place clusters of this satellite as network nodes. It is envisioned that space users can use these interplanetary small satellites (and their network) for gigabit connectivity as well as accurate navigation and positioning in cislunar and deep space.

This project will develop a novel small satellite with embedded optical communications systems. It will be equipped with two distinct optical communications terminals, one for long-range connectivity and the second one for short-range, swarm connectivity. The small satellite’s long-range terminal consists of six optical transceivers evenly distributed around the body of the spacecraft to provide omnidirectional coverage. The transceivers will be fully integrated into and commanded by a fast processor. The small satellite will have a coherent modulation architecture operating at around 1550 nanometers. The transmitter design to be pursued during this project includes a distributed feedback laser diode, a phase modulator, an optical amplifier, a circulator, and a collimator. All these components will be connected by optical fibers. The seed laser will produce a 10-milliwatt laser beam, which is passed through the phase modulator where it is modulated at high speeds (10-100 gigabit per second). After the modulator, the modulated beam is boosted via an optical amplifier and passed through a collimator to generate a collimated, high-power beam. The collimator launches the beam into free space and directs it to a steering mirror for coverage of its field of regard. It is envisioned that the system could achieve transmission speeds as high as 100 gigabit per second.